OCEANOGRAPHIC INSTRUMENTATION - 2005

This award to Woods Hole Oceanographic Institution in Massachusetts provides shared-use instrumentation to significantly improve the oceanographic research capabilities of the research vessels Atlantis, Knorr and Oceanus, three ships operated by WHOI as part of the University-National Oceanographic Laboratory System research fleet. Specifically, this award will provide Niskin bottles for water sampling, a network data storage system for shipboard data backup, various sensors for use in conjunction with CTDs (conductivity-temperature-depth sensors), deep-water in-situ pump systems for sampling particulate matter in the water column, a direction finder for locating instruments at the sea surface, and a nitrate sensor. These improvements will be of substantial advantage to marine scientists using these three ships in their research during 2005 and future years.